Mathematical Sciences: Multivariate Bayesian Classification Methods in Spatial Statistics

The principal investigator will explore the use of multivariate Bayesian classification methods in spatial statistics. He plans to study the contextual classification of remotely sensed data using iterative Bayesian and empirical Bayesian procedures. He plans to extend existing models to broader contexts,and hopes to improve current models in various ways. Both simulated and actual data will be studied. He will study nugget effect models, various spatial correlation structures, and adaptive starting value models using natural conjugate prior families (while using iterative procedures for posterior classification). Results should be applicable to satellite imagery in agricultural and geophysical contexts, to image reconstruction, and to problems in pattern recognition.